Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics at the University of Connecticut at
Storrs will purchase a file-server, a rack-mounted cluster for
parallel computation and visualization equipment which will be
dedicated to the support of research in the mathematical sciences.
The equipment will be used for several research projects, including in
particular: the following work of faculty with the assistance of
graduate students and post-doctoral fellows:

Prof. Choi's work on parallel algorithms to assist the virtual cell
project in mathematical biology; Prof. Neumann will study the
parallelization of algorithms associated to transition probabilities
of Markov chains; geometric analysis and associated visualization of
extensions of mappings, conformal geometry of manifolds and special
surfaces such as rational minimal surfaces are the focus of
investigations by Profs. Abikoff and McCune; topological computations
and related algebraic and symbolic computations of 3-dimensional
manifolds and of the structure of modules over the Steenrod algebra
which arise from the classifying spaces of certain vector bundles will
be conducted by Profs. Giambalvo and Tollefson; Computational partial
differential equations with applications in the physical sciences
which include coupled Schr\"odinger equations, travelling waves and
the non-linear Gross-Pitaevskii equation will be studied by
Profs. Choi, Koltracht and McKenna.